Presidential Young Investigator Award: Heat Transfer and Fluid Dynamics in Materials Processing

The PI proposes to study Planar Flow Casting and Melt-spinning processes for the manufacture of rapidly-solidified metal foils. The major heat transfer, fluid mechanics, and phase change phenomena governing these processes will be investigated via both experiments and numerical modelling. In parallel, the corresponding solidification kinetics and the resulting microstructure and mechanical properties of the foils will be analyzed.